Partial Differential Equations

This project involves investigations in Partial Differential Equations,
with particular attention to two areas. One involves the development
of microlocal methods in spectral and scattering theory. Wave equation
techniques continue to be important in the analysis of functional calculi
for many important self-adjoint differential operators. One type of
problem in this area is the fine behavior of convergence of generalized
eigenfunction expansions for the Laplace operator on a broad class of
complete Riemannian manifolds. Both in this study and other studies
in spectral theory, such as spectral theory for quantum Hamiltonians
for gauge fields, there arise problems in the Fourier analysis of
Fourier integral distributions associated with transversally intersecting
Lagrangians. The project will also treat some inverse scattering
problems, in which microlocal techniques for eigenfunction expansions
appear as useful tools to filter out that part of the data whose
measurement leads to ill posedness. The other general area involves the
study of PDE in various nonsmooth settings. Some of the work here has
been stimulated by work on equations of fluid motion in nonsmooth
domains. This work has also led to other problems, such as applications
of layer potential methods to PDE with nonsmooth coefficients, on
Lipschitz domains. This work in turn stimulates work on classes of
pseudodifferential operators whose symbols are not regular.

The studies of wave motion and fluid motion are fundamental in science and
mathematics. Reception of wave motion enables one to decode such motion
into information about the source. This may involve hearing a bell ring
and inferring its size and location from the tones into which the sound
waves resolve. It may involve recording readings of waves generated by
a blast in the ground, and drawing conclusions about the ground
underneath. The relation between the study of waves produced by a
source and the set of tones produced, the `spectrum,' is a central topic
in mathematical analysis. This project will further develop mathematical
tools to study waves and spectra. It will tackle questions on how
diffraction effects of waves influence the reconstruction of functions
from their spectra, and questions on how to reconstruct an object from
the waves it scatters. It will also tackle the equations of fluid motion,
using techniques of harmonic analysis that are also germane to the study
of waves.